SBIR/STTR Phase II: Microchip-Laser-Based Optical Alloy Analysis Instrument

This Small Business Innovation Research (SBIR) Phase II project concerns the development of an optical alloy composition sensor based on laser induced plasma spectroscopy. A key element of the sensor is the use of a microchip laser excitation source. The technology has the capability to detect industrially relevant compositions in steel alloys and possibly aluminum alloys. The Phase I results indicated the efficacy of the technique for the analysis of iron alloys. The Phase II project will focus on the development of a small, lightweight and mobile field prototype, which will be able to analyze various alloy samples.

The key commercial application of this technology is aluminum and iron scrap metal analysis, substantial market niches which are not effectively covered by existing analysis
technology. The major market is for steel and aluminum alloys that have significant components of light elements. These precision instrument currents have sales worldwide in excess of $10 million per year.